REU Site: Summer Undergraduate Research Program in Nuclear Physics at the Indiana University Cyclotron Facility

The principal goal of the Summer Undergraduate Research Program in Nuclear Physics at the Indiana University Cyclotron Facility is to provide promising undergraduate physics majors with a meaningful, exiting and challenging experience in scientific research. Fifteen students per year will be involved in experimental and theoretical research projects at IUCF and the Nuclear Theory Center for 10-week summer terms in the 3-year period 1992-94. The students will be recruited from colleges and institutions throughout the U.S., with preference to institutions within the Midwest as well as small institutions where research opportunities for undergraduates may be limited. It is expected that 90% of the students will come from institutions other than Indiana University at Bloomington, and that at least 25% of the students will be women. The participants will gain direct research experience by working on projects in nuclear physics, nuclear chemistry and accelerator physics, under the supervision of faculty members and senior scientific staff. Special programs for the students will be arranged, including orientation sessions, weekly seminars on current research in physics, and a machine shop mini-course. At the end of the summer term, the students will submit research papers based on their work, and present the results in seminars at a closing symposium.